TEM Characterization of Structures and Defects of Minerals Including High Pressure Phases

The principal investigators will develop the method of 3d electron crystallography for routine analysis of mineral structures from high resolution electron micrographs. They will initially study rhombohedral carbonates, calcium-aluminum pyroxene, and perovskite, as well as high-pressure phases produced in the diamond anvil cell.